Dissociative Collision Dynamics in Electron Polyatomic Scattering

This research focuses on the theoretical and computational treatment of dissociative attachment and dissociative recombination in molecules. The research combines the quantal treatment of the electron dynamics via the Complex Kohn Method, with time-dependent wave-packet propagation for the heavy particle degrees of freedom.